Topological Methods in Representation Theory and Automorphic Forms

DMS-0105256
Kari Vilonen

The goal of the the work of the principal investigator
is to develop geometric techniques for applications in
representation theory and the geometric Langlands program.
From this point of view the basic geometric problem is to
understand perverse sheaves from the microlocal point of
view. A sufficiently deep understanding of microlocal
perverse sheaves on flag manifolds should lead to interesting invariants of irreducible representations of reductive
Lie groups and, hopefully, in the end, to an understanding
of unipotent representations. Similar techniques are also
being applied to modular representation theory. The goal of
the last project is to gain insight in the geometric Langlands conjecture in its various forms. In addition to microlocal
techniques the point of view of Whittaker models is used.

The fundamental theme of the project is the interplay
between geometry and representation theory. The idea of
reducing the understanding of various geometries to their
groups of symmetries goes back to Felix Klein at the end
of the nineteenth century. From this point of view the
basic objects, the "atoms" of the theory, are the
irreducible representations of the group of symmetries
of a given geometry. It turns out that these atoms arise
from a particular geometric situation and hence we can
apply geometric methods to analyze the properties of the
irreducible representations. This is the goal of the
first part of the the proposal. The second part of the
project deals with the deep conjectures of Langlands.
Here the geometry in question arises from an arithmetic
situation and this brings number theory in the mixture of
geometry and representation theory.